Phylogenetic Analysis of Salmonid Fishes Using rDNA

Dr. Phillips will investigate the evolutionary relationships between the North American, European, and Asian trouts and salmon. This will be done by obtaining data on the DNA sequence of the ribosomal RNA genes using techniques of restriction mapping and DNA sequencing. Using these data a phylogenetic tree will be constructed. This tree will be compared with trees obtained from the analysis of other data including information on morphology, chromosomes and mitochondrial DNA. All of the data will be combined into a single tree which will illustrate the current hypothesis for the evolutionary relationships between these important fishes.